Computational and Visualization Laboratory Classroom

An interdisciplinary computational and visualization laboratory/classroom (CVLC equipped with SGI Indigo workstations will be established in the Department of Mathematics. The CVLC will be utilized: (1) as a classroom and research laboratory for a new interdisciplinary Computational Science (CS) seminar, and (2) for enhancement of upper-division courses in Math, Physics, Biology, Chemistry, Geology, CS, and Finance. Students and faculty from the above-mentioned departments will interact with each other in the context of the CS seminar. The proposed state-of-the-art computers will permit student computational projects which explore current topics in research areas of interest to the participating faculty. Proposed topics range from parallel methods for eigenvalue problems to modeling particle dispersion by Monte Carlo methods to stock option pricing. Graphical display methods will be stressed which take advantage of the excellent visualization capabilities of the Indigos. Multimedia features will promote dissemination through student presentations. The CVLC facility will allow computational topics to be effectively incorporated into existing classes. "Real examples" of results from applicable theory allow students to study complex systems which are typically inaccessible to undergraduates.